POSE: Phase I: Tile-Debugger: Enabling Accessible, Flexible, and Insightful Debugging for AI Workloads on Graphics Processing Units (GPUs) and Accelerators

Artificial Intelligence (AI) is changing how we solve problems in science, industry, and education, but many developers lack sufficient access to hardware accelerators for AI such as Graphics Processing Units (GPUs) needed to test and improve their programs. This project advances Tile Debugger, an open-source framework that lets users simulate and visualize how AI programs run on accelerators using regular Central Processing Unit (CPU) machines, including a three-dimensional (3D) view of data to make complex behavior easier to understand. By building a community led open-source ecosystem through the Pathways to Enable Open-Source Ecosystems (POSE) program, the team will lower barriers to participation and speed innovation across vendors and programming languages. The broader impacts include faster more reliable AI tools for fields like biology and materials science; classroom modules that make systems level concepts tangible for students; and lower cost to deploy trustworthy AI in production settings — outcomes that serve the national interest by strengthening research, workforce development, and technology competitiveness.

The project will transition Tile Debugger from a research prototype to a sustainable, community governed open-source ecosystem. The framework provides a backend agnostic stack for simulation, instrumentation, and visualization of tile-based programming models without requiring accelerator hardware, enabling early prototyping and analysis on CPU hosts. The OSE will define clear, stable interfaces that allow hardware vendors and programming language developers to integrate their frontends and backends, and will organize hackathons, tutorials, and workshops to seed contributions and shared best practices. Methods include expanding the interactive 3D tensor visualization engine, packaging and documenting custom analysis tools (such as invalid memory access detection and numerical instability identification), and establishing governance models that encourage distributed development. Expected contributions are a standardized set of debugging and analysis capabilities across AI hardware accelerators, improved correctness and reliability of AI workloads, and a scalable pathway for community driven extensions that reflect post review refinements to project goals.